Realizing the Power of Computers in Business Statistics Instruction: A Next Step

Numerous reports have cited the deplorable state of scientific and mathematical illiteracy that exists within the U.S. Numerous approaches are being made to rectify this problem in grades K-12. However, until students who have benefitted from these new approaches reach the university, something must be done to help today's university students. This project is using the power of modern computers in the classroom to motivate, interest, and engage students who are taking a required business statistics course so that they can become more adept at quantitative reasoning and problem solving. In order to reach this goal, lesson modules are being developed that use quality color graphics, intensive computation, and multi-tasking to illustrate and demonstrate selected statistical concepts. Each module consists of computer-based lecture materials, classroom exercises, instructor notes, and student experiments. These lessons illustrate statistical concepts by integrating the computer into the classroom environment; involve students in problem solving by employing real, interesting, and relevant databases, statistical experiments and simulations; and illustrate situations where statistics can be used as an effective tool to understand and solve problems. Potential impacts include improved student performance, an increase in students' abilities to use statistics to formulate and answer their own questions, and enhanced interest in quantitatively-oriented business careers.